OIDA 1998 Annual Forum; October 1-2, 1998; Washington, D.C

Proposal Number: ECS-9815305 Principal Investigator: Arpad Bergh (OIDA) Title: OIDA 1998 Annual Forum Abstract The NSF/DARPA jointly sponsored forum is organized by OIDA for discussion of industrial trends and needs, new technology breakthroughs and public policies with an audience consisting of industrialists, government policymakers and academia. The exchange of information will promote a smooth transition of technolgies and adaptation of policies to meet the real needs of both industries and academia . Students participation is also encouraged for their education and career development.